Conference: Organization of the 1993 Ultrafast Electronics &Optoelectronics Topical Meeting. To be held January 25-27, 1993 in San Francisco, California

Topics covered under this conference include: ultrafast optoelectronic devices, high-speed electronic devices, physics of semiconductor devices, optical probing & control of high-speed circuits & devices, device fabrication technology and device characterization, cryo- electronics. The conference is international in character. The NSF funds will be used largely to support student attendance and young faculty participation.